"Parallel Computation and Boolean Circuits - lambda calculus, equational theories, modular counting and permutation groups"

This project concerns the study of the structure of classes of functions computable in resource bounded parallel computation models, such as the parallel random access machine and families of boolean circuits. The project specifically concerns (1) equational logics, higher-type functionals, finite typed lambda calculi and associated programming languages related to the parallel complexity class NC of polylogarithmic time and its subclasses and (2) boolean circuit complexity, the relation between the family of invariance groups of a language and the its parallel complexity, the relation between the "algebraic" structure of a regular language, and characterization of low-level uniform parallel complexity classes in terms of Bel'tyukov's stack-register machines. This research will use techniques from complexity theory, proof theory (mathematical logic), combinatorics, and finite group theory. The work on equational logics, lambda calculi and higher-type functionals, and Bel'tyukov machines will build on new recursion theoretic characterizations of the parallel complexity class NC and its subclasses. The goal of this research is to increase our understanding of parallel complexity classes: (1) higher type functionals lead to sequential, modular programming languages which compute exactly the functions of certain parallel complexity classes, (2) free variable equational logics shed light on combinatorial principles involving counting and which admit polynomial size Frege proofs, a direction of research related to the N P =? co- N P question, (3) Bel'tyukov machines will clarify questions of containment of low level parallel complexity classes.